RIA: An Object-Oriented Extensible View System for Computer-Aided Design Applications

RIA: An Object-Oriented Extensible View System for Computer- Aided Design Applications Computer-Aided Design (CAD) systems typically use an object- oriented database (OODB) to integrate diverse design data into one repository accessed by all design tools. Such a central database is a critical bottleneck preventing the extensibility of the CAD system over time, and forcing all design tools to work on the same (comprehensive and hence extremely complex) data model. Clearly, there is a conflict between supplying design tools with customized design representations and integrating design data into one uniform model. This research effort addresses this problem by extending OODB technology by two advanced features: (1) design views and (2) schema change support. To support customized design representations, mechanisms to manage individualized tool interfaces of the CAD database are being implemented (which free individual design tools from having to maintain mappings between the global data model and local design views). To support the extensibility of the CAD system, the view system will be augmented with schema change functionality. It is this unique integration of both capabilities that makes the Object-Oriented Extensible View System (OOEVS) a radically new tool for supporting CAD applications. Extensive experiments will be performed to evaluate OOEVS and its application for building complex software systems (in particular, CAD systems). The proposed research is significant in that it provides a solution to the important problem of CAD tool integration and extends state-of-the-art databases with powerful functionalities.